Designing Courses on Human-Computer Interaction

This is a proposal to create and develop a sequence of courses for upper-level undergraduates in the area of human-computer interfaces. The courses will be based on readings and discussions and on group projects in the structured instruction, and will require novel materials as well as subject matter. A major objective will be developing skills to help students become competent in the design of computer-human systems. Funds will be used to develop a hardware - software design platform and to promote an environment for group project design. Teaching materials and laboratory manuals will be developed to aid in transporting this environment to other institutions.